Thermal Radiation Scattering from Very Rough Surfaces

ABSTRACT Buckius 9531772 The proposed work focuses on radiative scattering from surfaces whose roughness is on the same scale as the wavelength of the incident radiation. Rigorous and approximate approaches to analysis will be verified by experimental measurements for a variety of random rough and configured surfaces. Applications to detection of defects in semiconductor manufacturing and to improved computer graphics are envisioned.